Pseudoholomorphic curves in low-dimensional topology

Abstract

Award: DMS-0806037
Principal Investigator: Michael L. Hutchings

The main part of the project is to develop "embedded contact
homology" (ECH), a new invariant of a contact three-manifold,
which is defined in terms of periodic orbits of the Reeb flow and
embedded pseudoholomorphic curves in the symplectization. ECH is
conjecturally isomorphic to versions of the Seiberg-Witten and
Ozsvath-Szabo Floer homologies. Some specific goals of the
project are to further develop the analytical foundations of ECH;
to create tools for computing ECH, particularly in terms of open
book decompositions; to use ECH to obtain lower bounds on numbers
of Reeb orbits; and to work towards extending ECH to a more
general theory which would unify it with the Ozsvath-Szabo Floer
homology. Some broader goals are to use ECH machinery to help
compute symplectic field theory in three dimensions, and to
explore Floer-theoretic invariants of families.

The embedded contact homology developed in this project lies on
the interface between dynamics and low-dimensional topology.
Dynamics is concerned with the behavior of physical systems over
time, while low-dimensional topology studies the possible shapes
of curved spaces in three and four dimensions. Embedded contact
homology allows one to obtain deep topological information from
an understanding of dynamics; and conversely to obtain important
dynamical information, such as the existence of stable
configurations, from topological conditions.